Conference: IEEE ICHI 2023 Doctoral Consortium Program

This project requests support for doctoral students to attend the IEEE International Conference on Healthcare Informatics (ICHI2023) in Houston, TX, USA. ICHI2023 provides a supportive scientific forum for students focusing on computing, health- and bioinformatics. It provides a forum for expert and peer critique of students' research with the goal of improving their science. Student participants will also have the opportunity to receive networking support and career advice from internationally recognized experts. This proposal supports doctoral students by providing a Student Doctoral Consortium focused on encouraging students to learn from peers and experts from multiple perspectives to understand how innovative computing and informatics combine to make the most impact in the area of health. In addition, student participation in rapid talks and roundtable sessions at the conference enables students to explore their science and see different career paths for researchers in this area.

The ICHI2013 conference exposes participants to different scientific disciplinary approaches, supports networking with conference attendees, and is designed to support the development of the next generation of scholars in health- and bioinformatics. Overall, the travel support brings together students with experts who might not otherwise engage with one another and engage in multidisciplinary science in the area of health. This award reflects NSF's statutory mission and has been deemed worthy of support through evaluation using the Foundation's intellectual merit and broader impact review criteria.